Some Economic Consequences of Adverse Selection

One party to an exchange often knows something relevant to the transaction that the other party does not know. Such asymmetries of information are pervasive in economic activity: for example, in the relationship between employer and employee when the employee's effort cannot be monitored perfectly; between insurer and insured; between the stockholders and the manager of a firm; between a socialist firm and the central planner; or between buyer and seller when the value of the item is uncertain. This situation is called adverse selection because the asymmetries of information can lead to inefficient outcomes. This project provides new insights into a number of difficult and as yet unresolved aspects of adverse selection. The project consists of five parts. First, it characterizes contracts for members of a team in the presence of both adverse selection (each team member's ability is known only to himself) and moral hazard (effort cannot be observed). Preliminary results show that an optimal contract can be designed in which monitoring is not needed to prevent shirking by team members. Further research determines the results when a number of crucial simplifying assumptions are relaxed. Second, it analyzes bidder rings, the efforts of bidders at repeat auctions to collude when bidders either can or cannot make transfers among themselves. Bidders must overcome the asymmetric-information problem of not knowing how much each other values the item. Third, the project determines the best way of selling a unique item with a well- defined value which no one knows (like mineral rights). Fourth, the project studies auctions with decentralized information acquisition. Most auction theory assumes that information is fixed, but, in practice, bidders can acquire more costly information. For example, in mineral-rights bidding, geological surveys can be done. Fifth, the project uses the tools developed in auction theory to model the securities-market price-formation process. The effects of particular market institutions like the dealership market and the clearing house are determined.